REU: Research Experiences for Undergraudates at the Hubbard Brook Experimental Forest

This is a Research Experiences for Undergraduates project. It will provide research experiences for eight students working on the University of New Hampshire's Hubbard Brook Ecosystems study. Students will participate in projects involving forest ecology, limnology, biogeochemistry, microbial ecology and atmospheric sciences.